STTR Phase I: Developing Coupled Quantum Dot Multi-Functional Materials for Optoelectronics Integrated Circuits (OEIC)

This Small Business Technology Transfer Phase I project is to demonstrate a new Coupled Quantum Dot (CQD) multifunctional material. Electron-tunneling and inter-quantum dot coupling effects will be analyzed. The tunable energy bands of the new CQD material will be simulated.

Successfully performing the proposed research will provide an enabling multifunctional CQD material platform that allows the monolithic integratation of lasers, electro-optic (EO) modulators, and photodetectors on a single chip. Such monolithic integration will not only minimize the size and weight of photonic system, but also substantially reduce the optical alignment cost and enhance the system reliability.

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).